ONSIGHT Scholarship Project

Forty scholarships are being awarded to talented, low-income students pursuing careers or transfer associate degrees in biology, biotechnology, chemistry, computer science, engineering, mathematics and physics.

Intellectual Merit: The current project is based on successful past projects under the CSEMS scholarship program and expands the opportunities to a greater number of science, technology, engineering and mathematics (STEM) majors. The management team involves full-time faculty from each major represented in the ONSIGHT cohort as well as a full-time science and mathematics advisor, and the Development Director from the Seattle Central Foundation. Other features of this program relating to intellectual merit include: well-established four-year/industry partnerships, mentoring and internship programs adapted from effective CSEMS projects from across the nation, and the participation of twelve full-time science, technology, engineering and mathematics (STEM) faculty as mentors to scholars through the duration of the project.

Broader Impact: Seattle Central Community College is an urban college with the most diverse student population of any community college in the state of Washington. The recruitment and selection processes, mentoring and support service structures, established for the ONSIGHT project, support the significant participation and success of scholars typically underrepresented in STEM fields.